Collaborative Proposal: Postseismic deformation of the Izmit-Duzce, Turkey earthquake sequence: implications for the mechanics of the earthquake cycle and rheology of the continent

The proposed research will provide an important set of observations on the nature
of the earthquake cycle for a major continental strike-slip fault with direct implications for earthquake
mechanics, estimating earthquake repeat times, crust and upper mantle rheology as a function of the state
of stress, and interaction between earthquake processes and regional tectonics.
Broader Implications: This case study provides information on the mechanics of continental strike-slip
faults in general, including the San Andreas Fault, earthquake and tsunami hazards in the greater
Istanbul area, and opportunities for international scientific collaboration.